Nilpotent Orbits in Representation Theory

DMS-0201826

Principal Investigator: Eric Sommers [[email]]

Abstract:

The principal investigator will study several questions in representation
theory which are related to nilpotent orbits in Lie algebras. More
specifically, the investigator will study a new duality map that he
defined (and that has recently been extended by Achar). He will continue
to study the Lusztig bijection. He will try to complete the determination
of which nilpotent orbits in the exceptional Lie algebras have normal
closure and prove results (in all Lie algebras) about the structure of
functions on covers of nilpotent orbits.

Representation theory is a branch of modern algebra that is concerned with
understanding symmetries. A central idea is that complicated algebraic or
geometric structures can be represented by a certain set of matrices
(arrays of numbers), which are easier to understand than the original
structure. For example, the symmetries of the square can be represented
(in one possible way) by a certain set of eight two-by-two matrices.
This view of representation theory has many applications in chemistry and
physics. The investigator's work will contribute to understanding the
representation theory of Lie algebras and Lie groups.